NMR Spectral Applications in Chemistry and Biochemistry

The Department of Chemistry at Trinity University will fully integrate nuclear magnetic resonance spectroscopy into its undergraduate curriculum using applications that demonstrate the enormous power and versatility of this spectroscopic methodology for the examination of chemical structure and dynamics. Virtually all students who have the potential to employ NMR methodologies in their eventual careers will be exposed to multiple uses of this essential technology. Development of this program will be achieved through the purchase of a 60-MHz nuclear magnetic resonance spectrometer for observation of proton and phosphorus-31 nuclei. This spectrometer will be employed for spectral observations of organic and organophosphorus compounds, for determination of the structure and dynamics of inorganic compounds having phosphorus ligands, and for investigations of biochemical processes by phosphorus-31 observation. Uses of this instrument will bring together major research developments which are dependent on NMR spectroscopy, particularly in biochemistry and inorganic chemistry, and relevant applications of this spectroscopy for inorganic chemistry and biochemistry in the undergraduate laboratory.